QnTM: Manipulation of Quantum Entanglement & Decoherence in Neutral Atoms and Quantum Dots

Intellectual Merit

The much appreciated and extensively followed roadmap for quantum computing [http://qist.lanl.gov ]and quantum information science brings out the importance of cavity quantum electrodynamics with
neutral atoms and quantum transport in nano-systems.Both the systems are extremely important as the qubits are very well defined and well characterized entanglement can be created.Besides the technological advances in these areas are making the experimental work catch fast with theory.

The proposed work on cavity QED is facilitated by the very recent success on trapping atoms
in a high quality cavity to hold these atoms for much longer times an important milestone
for the purposes of quantum information science.Further the quality of the cavity has been
improved which is crucial for better control of decoherence.

Broader Impact

Beyond the important research goals of this proposal,the broader educational goals are
to provide opportunities for postdoc,graduate and undergraduate students.In addition,
lectures on quantum information will be given by the principal investigators to local high
school students.